Mathematical Sciences: "Solution of Equations and Paths of Equations with Homotopies and Infinitesmals"

DMS-9502892 Eaves This research is to be directed along three closely related concepts, namely, the solution of equations and paths of equations with homotopies, the solution of parametric or short paths of equations with infinitesimals and ordered fields, and the formalisms of a linear problem and linear algorithm. The essence of the first concept is following the path of solutions where there is one dimension of freedom, while perhaps, using approximations, subdivisions, and/or Newton's method. The essence of the second concept is doing arithmetic with infinitesimals and, transferring algorithms, problems and solutions from one ordered field to another. For certain problems and algorithms a parametric version of the problem can be solved by lifting it to an ordered field containing an infinitesimal to obtain a single problem, the original algorithm is run in the new ordered field, and the solution is lowered to the original field to obtain a short path of solutions to the parametric problem. The essence of the third concept is the precise identification of what a linear problem is and what type of algorithms solve them. This research is to be directed along the concepts related to the solution of systems of equations; the pertinent systems of equations are widely applicable in engineering, science, and management.